W. Montague Cobb Collection Curatorial Project: Phase II

With National Science Foundation support, Dr. Michael Blakey and assistants will curate the W. Montague Cobb Human Skeletal Collection. These materials were collected by Dr. Cobb in the course of his many years of medical school work and are currently stored at Howard University in conditions which render the majority virtually inaccessible for research purposes. The collection consists of 737 skeletons and 982 records on these and other cadavers. What makes these collections particularly valuable are the associated records because this gives researchers a "known" base against which to develop analytical methods and to the study effects of processes such as aging and diet on the skeletal system. Dr. Blakey plans to renovate and expand his present laboratory facility for collection storage, research and related laboratory courses. Specimens will be relocated to the new laboratory facility and stored in adequate cabinets. A detailed and complete inventory of skeletal specimens and elements will then be made. The computer index will be expanded and upgraded and the availability of the collection be made known through publication. This project is important for several reasons. There are very few large and well documented skeletal collections in the United States - far too few given present research needs. This project will add to the list a third which will be available for study. It will also serve to halt the progressive deterioration which the materials are undergoing.